Algebraic Topology, Representation Theory, and Theoretical Physics

The PI will continue two main lines of research. The first, joint with
Michael Hopkins and Constantin Teleman, builds on our theorem identifying the
Verlinde ring in the representation theory of loop groups with a certain
twisted equivariant K-theory ring. The Verlinde ring appears as part of a
3-dimensional topological quantum field theory, Chern-Simons theory, and we
will attempt to make further constructions in this direction using K-theory.
In another direction, the Verlinde ring may be made using correspondence
diagrams and integration in K-theory. Consistent orientations of moduli
spaces are necessary to carry this out, and the appearance of Madsen-Tillmann
spectra in this regard will be further explored. Extensions to families of
surfaces and "open strings" potentially connect with other mathematics, for
example von Neumann algebras, and may open up new links. The second main
line of research, joint with a variety of collaborators, concerns topological
ideas in string theory and M-theory. For example, with Greg Moore and Graeme
Segal we hope to construct completely the quantum theory of a generalized
self-dual field. This will mix theta functions, Heisenberg groups, quadratic
forms, and the index theorem in a novel manner. There are also interesting
questions involving various aspects of D-branes and the B-field, some of
which impact current ideas about the landscape of solutions to string theory.
In addition, there are many student projects which relate to these topics as
well as to the geometric theory of Dirac operators.

This research is part of an interaction between algebraic topology and
quantum field theory which began in the mid 1970s. The flow of ideas is
bidirectional. Existing mathematics is applied to solve particular problems
in physical theories. New ideas emerging from the physics inspire
developments and new directions in the mathematics. In particular, over the
past 15 years a new topological side to quantum field theory has been
developed and has had ramifications not only in topology but other parts of
geometry as well. Some of our efforts are devoted to using the integration
processes in algebraic topology to shed light on the integration processes in
topological quantum field theory--the former are well-defined whereas the
latter have as yet to be understood mathematically in the necessary
generality. The grant also supports educational activities, including the
Saturday Morning Math Group, a highly successful outreach program for middle
and high school students.